SGER: Path Dissolution in Propositional Logic

ABSTRACT
0229339
Erik Rosenthal
U of New Haven

The problem SAT determining whether a formula in propositional logic is satisfiable has
a long history in computer science. It is important in complexity theory and has myriad applications
in fields such as robotics, optical character recognition, database systems, computer
architecture, circuit design, and verification, to name but a few.
The traditional view of much of the mechanical theorem proving community has been that
interesting applications of automated deduction require first-order rather than propositional
logic. That view has begun to change in light of recent successes with propositional logic.
Propositional logic is of course intractiable (unless NP = P). One approach to this problem
with knowledge representaion and database systems is knowledge compilation preprocessing
the underlying propositional theory. The idea is to do as much computation as possible in an
offline phase. Then queries in the online phase can be handled quickly. Horn clauses, ordered
binary decision diagrams, sets of prime implicates/implicants, and decomposable negation
normal form (DNNF) have all been proposed as targets of such compilation.
Path dissolution is an inference mechanism that works naturally with formulas in NNF. It
is strongly complete in the sense that any sequence of link activations will eventually terminate,
producing a linkless formula called the full dissolvent. The paths that remain are models of the
original formula. Full dissolvents have been used effectively for computing the prime implicants
and implicates of a formula.
Decomposable negation normal form was first introduced in 1998 and is currently being
studied for application to knowledge representation and database systems. A formula in DNNF
is a full dissolvent, and it appears that many of the advantages of DNNF exist with full dissolvents.
It also appears that a full dissolvent of a formula can be obtained more effciently than
a DNNF representation of the formula. The main thrust of this project will be to examine the
relationship of DNNF and full dissolvents.